Mechanical Engineering Instrumentation Laboratory

A micro-computer instrumentation laboratory is being developed to augment traditional laboratory courses through the introduction of the PC as a powerful tool for data acquisition, real time computation, and digital control of electro-mechanical systems. The undergraduate laboratory supported by this facility consists of courses in measurements, automatic control theory, heat transfer, engineering modelling, analysis and control. These courses include a series of experiments to provide students with an opportunity for experimental verification and reinforcement of the fundamentals of a digital oscilloscope, DC motor speed control, signal processing and filtering, free vibration response, Fourier analysis, model identification of a beam, temperature control systems, and DC servo mechanisms. This project is being matched by an amount equal to the award.